2nd Joint American-Eastern European Conference on New Materials and Technologies in Tribology

9710282 Sadeghi Support is provided for group travel for twelve US tribologists and materials specialists to attend the 2nd US- Eastern Europe Conference on New Materials and Techniques in Tribology to be held in Minsk, Belarus in September of 1997. The meeting is a follow-on to a workshop held in 1991 and will serve to exchange research results and to further develop international cooperative studies in the field. ***